Inverse Anisotropic Problems and Resonances

Proposal DMS-0400869

Title: Inverse anisotropic problems and resonances
PI: Plamen Stefanov, Purdue University

ABSTRACT

The PI will work in the areas of Inverse Problems and Resonances. The PI
will study mainly inverse problems of recovering a Riemannian metric from
boundary or inverse scattering data. The central problem is the boundary
rigidity problem for Riemannian metrics (called also inverse kinematic
problem), where one has to recover a Riemannian metric in a bounded domain
from the lengths of geodesics connecting every two boundary points. This
problem is closely connected to the inverse problem of recovering a metric
from the associated hyperbolic Dirichlet-to-Neumann (DN) map on the
boundary, and also to an associated inverse spectral problem. The PI plans
to study the problem of generic uniqueness for simple metrics and stability
estimates. Related problems in integral geometry will be studied, like the
linearized problem: recovery of tensors from integrals along geodesics and
stability estimates. The PI will also work on the elliptic anisotropic
inverse boundary value problem, the inverse backscattering problem for the
acoustic equation, and related inverse problems where one has to recover the
coefficients of the principal symbol of the differential operator from
boundary or scattering data. In the area of Resonance Theory, the proposer
plans to study the location and asymptotic distribution of resonances for
various systems. Both scattering systems and semi-classical Schroedinger
type of equations will be considered. Among the problems that will be
studied are sharp upper bounds of the number of resonances in a disk or
sector in the complex plane, upper and lower bounds connected with various
characteristics of the trapped sets of the associated classical mechanics
problem. Mathematical justification of numerical methods for computing
resonances will be also considered. The properties of the scattering
amplitude near resonances will be studied as well, which is related to the
problem of observability of resonances.

Inverse Problems, and in particular the problems in this proposal, is a
mathematical tool of great importance to other sciences. Applications are
numerous: they are used in medicine for imaging the internal structure of a
human body and for medical diagnostics, in non-destructive material testing,
in geophysics for obtaining information about the inner structure of the
earth from seismic waves, in oil exploration, etc. Riemannian metric models
anisotropic media, where the speed of wave propagation may depend not only
on the position but also on the direction. The boundary rigidity problem is
of interest not only to scattering theory but also to Riemannian geometry,
its linearized version is a problem of independent interest in integral
geometry as a generalized Radon transform. Resonance Theory is part of
Scattering Theory for quantum mechanical and wave equation type of systems
in unbounded domains. Resonances are certain frequencies that can be
observed in a variety of situations in Quantum Chemistry, Physics,
Acoustics, etc. Besides being motivated by applications in other natural
sciences, Resonance Theory uses tools from and encourages further
development of mathematics areas as Microlocal Analysis, Dynamical Systems,
and Geometry.